NSDL Service to Support Personalized and Community-Oriented Navigation

Interdisciplinary (99)

To be useful, a digital library must provide its patrons with easy access to materials that are relevant to their needs. Tools are being developed under this award to help users retrieve data that is pertinent to interest of the specific user. To accomplish this end, the project is developing a Community Navigation Service (CNS) based on data collected by an Interest Profile Manger (IPM) while continuing to personalize resource presentation by way of the IPM to preserve privacy. The project's innovative feature is that it uses an IPM combined with the collaborative filtering and content analysis provided by a CNS to infer the value of a resource to the user.